Research Planning Grant for the Laser Raman Study of Glasses, Polymers and Ceramic Materials

9310926 Pugh This proposal is a Research Planning Grant proposal in the Minority Research Initiation (MRI) Program. The PI intends to develop a research proposal and to develop his proposal writing skills. The prime objectives of the planned proposal are to use the laser Raman spectroscopy to collect structural information from glasses, polymers, and ceramic materials. The PI hopes to use these data to develop better quality new materials. %%% This MRI project intends to develop a research proposal to be submitted for funding support. Its prime objectives are to collect structural information about glasses, polymers, and ceramic materials, with the use of laser Raman spectrocscopy. These result can be used to provide ideals for developing new materials of better qualities. ***